Interactive Computational Models

This project will study the complexity of interactive computational models. One goal of this research is to improve known results on the complexity of models such as interactive proof systems, multi-prover systems, and games against nature. Research on these models has applications to problems in optimization and automata theory, and in understanding properties of some types of stochastic processes, such as their rate of convergence to absorbing states. Another goal is to address a major question in theoretical computer science--how randomness and nondeterminism help in computation.